Experimental Studies of Crustal Anatexis

The principal investigator will experimentally study the chemical and physical controls on melting within the Earth's continental crust. In addition to answering a number of specific scientific questions, the results will be used to constrain the stoichiometries of important melting reactions, and to determine the physical conditions required of various metamorphic lithologies to generate large mobile quantities of granitoid melts.